Helium-3 Scattering at Bates Large Acceptance Spectrometer Toroid (BLAST)

The study of helium-3 through electron scattering attempts to expose
nuclear physics and its underlying forces by breaking apart one of the
simplest nuclei, a bound state of one neutron and two protons, also
known as helium-3. The lowest bound nuclei are hydrogen, deuterium (
a bound neutron and proton), tritium (one proton and two neutrons) and
then helium-3. Because deuterium has only two nucleons, it is an odd
nucleus and does not represent standard nuclear material well. Tritium
is a difficult to work with, leaving helium-3 as the simplest nucleus
that has sufficiently interesting dynamics that are believed to exist in
larger nuclei. By breaking apart these nuclei using an electron beam,
the nucleus can be reconstructed from data taken and then tested against
leading theories in the field.

By working in two locations, the United States Naval Academy (USNA)
and MIT, students can be trained in the handling of the helium-3 nuclei
at USNA, and then later complete their education by working at the
MIT-Bates laboratory during the Summer months. The BLAST
(Bates Large Acceptance Spectrometer Toroid) experiment provides these
students the chance to participate on a world-class experiment while
exposing them to new concepts and instrumentation. The facilities to
perform experiements of this caliber are unique and only a handful are
in operation around the world. The specialized features of the
experiment BLAST are that the electron beam and helium-3 targets are
both polarized in a magnetic field such that new information about the
nucleus is revealed. One particular quantity sought after is the
electric moment of the neutron, dubbed G_E_n, which describes how the
neutron begins to appear as an electric moment as higher and higher
energies come to bear on the neutron. For this purpose, the BLAST
experiment will use both deuterium as well as helium-3 as
targets for the electrons to strike the neutrons held within
the nuclei.